District of Columbia Science & Engineering Regional Center for Minorities

Abstract: This project represents a coalition of Howard University, the University of the District of Columbia, the DC Public Schools (DCPS), several corporations and community organizations. The goal of the project is to facilitate system-wide assessment and intervention programs for students and teachers in the DCPS in science and mathematics at all grade levels. A unique methodology in the program is the adaptation of learning styles to cultural background. Each member of the Center is already substantially involved, formally or informally, in relationships with the DC Public School system. The superintendent has affirmed that the goals of the Center are consonant with the long range plans of the school system. The presidents of the universities have committed their instructors to support and sustain the Center's activities. The program components will be three types: academics, teacher- training, and community-based; the latter includes technical assistance to organization for in-school and after-school science and mathematics activities, tutoring, forums, apprenticeships, and peer- liaison.